A Hierarchical Approach to Morphological Image Processing

This Research Initiation Award will support development of hierarchical image processing techniques for extracting shapes from binary imagery. Traditional dilation and erosion operations have proven useful for binary image coding, object recognition, and inspection. Dr. Wong will study hierarchical representations for speeding up such operations, with an ultimate goal of efficient feature extraction from gray scale imagery.